The Delivery of Ion Channels to the Surface Membrane of Neurons

Many of the electrical signals required for neuronal communication are produced by the activation of ion channels located in the surface membrane of neurons. A rich repertoire of electrical signals can be produced within a single neuron by the selective activation of various types of ion channels heterogeneously distributed among different, specialized regions, including the cell body, which contains the nucleus and the metabolic machinery involved in protein synthesis, and the dendrites and axons, long filament-like processes through which neurons communicate with each other. We are studying the mechanisms by which ion channels are synthesized by neurons and inserted into their surface membrane, with the overall goal of identifying mechanisms that neurons used to regulate the expression of ion channels in their surface membrane. In particular, our proposed research is focused on the packaging of ion channels into small transport vesicles that carry the channels from their site of synthesis in the cell body to the surface membrane throughout the neuron. We recently developed a simple technique for collecting transport vesicles from cultured cells. From samples of these vesicles, we are using immunological techniques to isolate subpopulations of vesicles carrying specific ion channel proteins, thereby enabling us to use biochemical and electron microscopy techniques to characterize in detail the properties of the vesicles and their ion channel cargo. In addition, we are testing the hypothesis that: (1) different types of ion channels are sorted, packaged and independently transported to different regions of the surface membrane and (2) ion channels acquire their functional properties prior to insertion into the surface membrane. Although the scope of this investigation will not be affected by the reduction in my current budget request, the reduction will require my continued reliance on equipment in other laboratories.